Interactive Visualization of Self-Organizing Cellular Automata

The Department of Mathematics of The University of Wisconsin - Madison, with subcontracts to the Departments of Mathematics of Colby College and the University of California - Davis, will purchase, at an estimated price of $37,500, equipment to support research in the mathematical sciences. The equipment consists of dedicated CAM-8 workstations, high-performance pseudo-parallel processors that enable video visualization of a wide variety of lattice dynamics at a speed of 25 million cell updates per second. Companion hardware and software will also be purchased as the budget permits. This equipment will aid Professors D. Griffeath (Wisconsin), R. Fisch (Colby) and J. Gravner (UC-Davis) in their research on complex random systems. The three investigators rely heavily on computer experimentation and graphics in their collaborative and individual research. Primary benefits anticipated from the present request are as follows.